The Eighth Mississippi State - UAB Conference on Differential Equations & Computational Simulations

This award supports participant travel for the eighth meeting in the series of Mississippi State - UAB Conferences on Differential Equations and Computational Simulations, held at Mississippi State University, 7-9 May 2009. The multidisciplinary conferences provide a forum where mathematicians, scientists, and engineers from academia and industry exchange research and education ideas involving theoretical, applied, and computational developments in differential equations and associated simulations.

This three-day meeting emphasizes research on differential equations and computational simulations with applications in engineering and biology. The conference provides graduate students and young researchers with opportunities to present their work, meet other researchers, educators, and practitioners, learn of recent developments in interdisciplinary fields, and develop a new generation of mathematical models and challenges.

Conference web site:
http://www.msstate.edu/dept/math/events/de.conf/de2009